PACIFIC 2013 Symposium: Particle Astrophysics & Cosmology, Including Fundamental InteraCtions; University of California Gump Station, Moorea, French Polynesia; September 2-7, 2013

This award will provide participant support for early career scientists and graduate students to participate in the PACIFIC 2013 Symposium. This symposium will focus on the latest developments at the interface of particle physics, astrophysics, and cosmology and on their ramifications for understanding fundamental interactions.

It will be held September 2-7, 2013 at the University of California Richard B. Gump South Pacific Research Station, located on the island of Moorea in French Polynesia.

For Broader Impacts, it has a particular focus on early career scientists and graduate students. To make the symposium more accessible to the general public, they have integrated a public lecture by one of the symposium speakers into the schedule.